IVth International ASM Symposium on Streptococcal Genetics May 15-18, 1994, Santa Fe, NM

9316724 Gilmore The demonstration that DNA was the principle that transformed Streptococcus pneumoniae from rough to smooth colony type is broadly viewed as the event that launched the era of molecular genetics, the cornerstone of modern biotechnology. Streptococcal genetics have continued to be at the forefront in developing biotechnologies for application in manufacturing, such as dairy, meat, and silage fermentation industries; the production of novel streptokinases in the pharmaceutical industry; and for determining the structure and function of numerous virulence factors in human and veterinary disease. Investigators from these diverse fields who have made major contributions to the rich history of streptococcal genetics, as well as young aspiring investigators from across the globe will be brought together in Sante Fe, NM, for the Fourth International ASM Symposium on Streptococcal Genetics. Funds obtained from NSF will be used to support travel, registration, and meeting expenses for students, post-doctoral fellows, and speakers addressing central issues on the basic genetics of streptococci, lactococci and enterococci. ***